Workshop for "Magnetosphere/Ionosphere Plasma Models"

The workshop to be held at Huntsville, AL, is on the modeling aspects of the magnetosphere/ionosphere coupling processes. The focus of this meeting is to assess the current status of this field on the following aspects: (1) global plasma characteristics such as density, bulk flow, heat flow and temperature, (2) mesoscale processes such as polar flow, and (3) smallscale processes such as turbulence and heating. This workshop will bring together theorists and numerical modelers.